Special Minority Award (Physics) - Richard V. Astur

This Special Minority Award provides a second year of support for Richard Astur, a graduate student at Michigan State University. The award will allow Mr. Astur to proceed with his thesis research project in particle physics. This award is an integral part of the strategy of the National Science Foundation to strengthen and increase minority participation in the field of physics.